The Oceanography Camp for Girls and Teachers

9552898 Coble The University of South Florida (Tampa) will initiate a five-week summer commuter Young Scholars program serving thirty young women entering 8th grade in the summers of 1997 and 1998. The disciplinary focus of the program is marine science, emphasizing biology, chemistry, geology, and physics, with mathematics applications. The students experience field trips, a data collection cruise on a research vessel, and laboratory experiments. Female USF faculty and graduate mentors serve as role models. Also to be initiated is an Mathematics and Science Teaching Perspectives component to provide opportunities for research and learning opportunities for six middle school teachers. In addition to completing research the teachers will develop lessons to take back to their classroom, thus impacting a greater number of students.